Symposium: A Symposium on New Service Opportunities for Electric Utilities: Creating Differentiated Products to be held at the Univ of California-Berkeley on Sept. 12-14, 1990

This is support for a symposium entitled "New Service Opportunities for Electric Utilities: Creating Differentiated Products" to be held at the University of California - Berkeley on September 12 - 14, 1990. The main topic is product differentiation in the power industry, an industry which is partially regulated and partially deregulated. The symposium is also being supported by the Electric Power Research Institute (EPRI) and the University of California Universitywide Energy Research Group.